SGER: Heterodyne Techniques In Two-Dimensional Image Processing

9526214 Mehrl We propose prototype development of versatile two-dimensional VLSI heterodyne detection arrays. Such devices would find wide application in many optical architectures that employ temporal/spatiotemporal modulation techniques, such as acousto- optic signal processing, two-dimensional real time image processing, and swept-carrier time domain memories. Upon successful completion of prototypes, a simple, yet powerful and flexible two-dimensional image processing technique will be demonstrated. This technique, using spatiotemporal modulation of the image, coupled with heterodyne detection, is particularly well suited for two-dimensional image edge-detection and edge- enhancement operations, and offers continuously variable spatial resolution. ***